Excellence in Mathematics Scholarship: Assuring Quality Undergraduate and Graduate Programs at Doctoral Institutions

Mathematics departments in the nations's doctoral institutions represent a powerful resource for fulfilling important national needs. From improving quantitative literacy to training scientists and engineers, from connecting universities and industries to educating the next generation of mathematics teachers, these departments have the potential to make a real difference in areas that extend well beyond their own majors and boundaries. Universities have become vitally engaged in efforts to assess their role, exploring new thinking about scholarship, reform in curriculum and teaching and the relationship between undergraduate teaching, graduate training and research. Since nearly every student who enrolls in a university takes a mathematics course at some point, mathematics is strategically positioned--even obligated--to affect the role of the university and improve in teaching, learning and scholarship. This project will identify critical issues related to quality mathematical experiences for undergraduate students in doctoral institutions, set strategies for implementation of the recommendations of recent reform reports and develop a continuing agenda enabling mathematics departments to assure quality undergraduate and graduate programs at doctoral institutions. The project will highlight activities that work in departments across the country, engage both faculty and administrators in dialogues about programs and resource needs, and give departments the information and means necessary to replicate or adapt successful programs.